Coherent Structures, Self-Sustaining Process and Bifurcations in Shear Flows

9803685
Waleffe

Building on an understanding of a fundamental self-sustaining process in
shear-flows, an approach is developed to calculate hidden ordered states in
shear flows such as plane Couette, plane Poiseuille and pipe flows.
Knowledge of these states provides new starting points for the analysis of
the onset of turbulence in shear flows. A complete characterization of the
sequence of bifurcations leading to turbulence will be attempted based on
the calculation of hidden steady states, analyses of their local stability
properties and controlled numerical simulations. The striking similarity
between those hidden ordered states and the coherent structures observed
experimentally near boundaries will be investigated. It is also proposed to
develop simplified models of the self-sustaining process, such as a low-
order model developed in earlier work.

This work illustrates the unique capabilities of high-performance
Scientific Computing. The flow features that are revealed by this approach
are not accessible by any other means, including analytical or
experimental techniques or even numerical simulations. These features are
the order hidden beneath the turbulence and their elucidation is of deep
theoretical and practical interest. Turbulence is the defining characteristic
of fluid flows in engineering and geophysical settings as well as of many
biological flows. Therefore, progress in the fundamental understanding of
turbulence is of wide-ranging practical relevance. A direct application of
this research is to the development of robust models for prediction and
control of turbulent flows in pipes and channels and over wings and
surfaces, with an aim at drag and noise reduction.